I-Corps: Translation Potential of an Autonomous Brain-on-a-Chip Platform for Functional Drug Discovery

This I-Corps project is based on the development of a self-contained biological and silicon device that merges lab-grown human brain cells with microfluidic hardware as a tool for drug discovery and emerging biotechnology. Current preclinical research with drug candidates often is not able to capture how human neural tissue functions. This technology combines automated sample handling, precise electrical measurement, and programmable stimulation to observe how candidate drugs change neural network behavior before they reach costly clinical stages. The potential applications include neurotoxicity screening, efficacy testing, disease modeling, precision medicine workflows, and biological computing. The device generates scalable, human-relevant functional readouts, and may help pharmaceutical, biotechnology, and drug-discovery organizations identify safer and more effective therapies earlier, reduce dependence on less predictive testing approaches, and make development decisions faster.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of an autonomous brain-on-a-chip platform for functional testing of neuroactive compounds. This technology integrates high-density multi-electrode arrays, microfabricated neural interfaces, engineered in vitro neuronal architectures, robotic positioning, programmable chemical and electrical perturbations, and computational feedback to record and stimulate living neural networks reproducibly across multiple biological samples. Previous research has demonstrated long-term operation of a working platform, scalable electrical access to living neurons, durable spatial organization of neural cultures, and quantitative measurement of network dynamics under perturbation. The technology provides conversion of living-neuron computation and adaptive dynamics into robust, longitudinal, functional readouts that are difficult to obtain from conventional cell assays or animal models. Users may benefit by obtaining earlier evidence of compound safety, efficacy, mechanism, and reproducibility, enabling better candidate prioritization, faster assay turnaround, reduced manual handling, and more confidence in preclinical decision-making.